Film Condensation Heat Transfer Enhancement on Horizontal Finned Tubes

The widespread use of finned tubes in condensers has been retarded because of the inadequacy of available design information. This research will provide the needed information. It is expected that the new information will open the way to the development and manufacture of new types of heat exchangers.